Problems in Combinatorial Set Theory

I propose a program of research in the general area of
combinatorial set theory, with an emphasis on "singular cardinal
combinatorics" in the style of Shelah. An example of the sort of
questions that I propose to work on is the question (due to Woodin)
whether failure of SCH at a singular cardinal implies the existence of
an Aronszajn tree at the successor of that cardinal. I am interested in
obtaining ZFC results as well as complementary consistency results:
the methods that I plan to use include PCF theory, inner models, Radin forcing
and some recent generalisations of proper forcing.

Combinatorial set theory can be seen as an attempt to take some very
elementary mathematical ideas (counting, ordering, permuting) and
make sense of them in the context of infinite sets. Typical problems might
involve finding an infinite path through an infinite tree, or colouring
the vertices in an infinite graph so that no two adjacent vertices have
the same colour. Problems of this kind turn out to be surprisingly
deep and have found applications in many areas of mathematics. The focus
of my proposal is problems involving so-called "singular cardinals",
which (by some measure) are the hardest infinite sets to understand.